CAREER: Analyzing Distributed Systems Behavior Using Repeated Execution

Modern distributed systems are extremely complex, due in large part to
individual node complexity, node unreliability and asynchrony, and
unpredictable network message delays and orderings. Further complicating
development of these systems is both the presence of multiple potentially
incompatible versions of the systems, and the need to build correct systems
also exhibiting high performance. Prior testing and simulation frameworks are
characterized either by extensive manual effort, or automated search for
violations of a binary decision problem---the presence or absence of a bug.

We are developing automated and interactive techniques for helping developers
understand the behavior of distributed systems implementations. By leveraging
the evolved frameworks, and instrumenting implementations in structured,
straightforward ways, we are building development tools focused on
understanding system behavior rather than merely identifying correctness
errors. This change in focus will enable more general tools that improve
development productivity in addition to testing productivity.

This research is proceeding on three fronts: 1) developing automated tools
using data mining with repeated executions to extract execution behaviors and
performance, 2) developing flexible execution descriptions suitable for both
use-case descriptions and automated processing, allowing more intuitive
interaction between users and their tools, and 3) incorporating testing tools
with revision control systems, enabling multi-version analysis and long-term
progress tracking. When completed, this research will reduce developer effort
necessary to design, update, and debug distributed systems, and may inspire
creation of a new class of systems debuggers analysing not just correctness,
but also performance and complexity.